Robust Numerical Methods in Polynomial Algebra with Approximate Data

The project aims to develop robust numerical methods and a high quality
software package PolynPak for solving three fundamental algebraic
problems: the univariate polynomial AGCD (approximate greatest common
divisor), the multivariate polynomial AGCD, and accurate
multiplicity-identification/root-finding. All three problems are under
a common assumption in application that the given data are empirical
and may contain errors from measurement and rounding-off. The methodology
in this project consists of a two-stage approach and the theory that,
while GCD and multiple roots are ill-posed/ill-conditioned under
arbitrary perturbation, they are remarkably insensitive when perturbations
are structure-preserving. Therefore, the ill-posedness can be removed by
reformulating the problem in a least squares setting under a structural
constraint after calculating the structure of AGCD and multiplicity. The
approach in this project may also be applicable to other ill-posed
problems in numerical computation.

This research is carried out in the fields of computer algebra and
numerical analysis where the mission is to provide the scientific and
industrial community with reliable algorithms and software for solving
mathematical problems. Since polynomial is one of the most fundamental
models in applied mathematics with a wide range of applications in areas
such as economic equilibria, chemical reaction, image processing/restoration,
to name a few, developing robust algorithms and software for polynomial
algebra, as the objective of this project, may have profound impact in those
applications and in scientific computing.